Mendocino College NSFNET Connection

9412999 Hartley This project connects Mendocino College to NSFNET over a 56,000 bits per second line. Faculty and students at the school benefit from access to the resources of the Internet, including libraries and supercomputers. In addition, they are able to communicate and collaborate with colleagues at other institutions in pursuit of research and educational projects. The award provides partial support of the project for two years.